Speech Recognition Using Morphological Properties and Artificial Neural Networks

This Research Initiation Award will allow Dr. Palakal to experiment with neural-network approaches for extracting speaker- invariant features from speech spectra. The initial work will classify vowels and dipthongs, with planned extensions to plosives, fricatives, nasal sounds, liquids, and glides. Recognition results will be compared to those for conventional approaches such as hidden-Markov modeling.